Vesicle Microtubule Interaction and Fast Axonal Transport

9316540 Sloboda The experiments outlined in this proposal will extend previous studies on microtubule based intracellular particle transport. The work focuses on the characterization of two high molecular weight microtubule associated proteins which are involved in the transport of membrane bound vesicles in squid giant axon, termed MAP H1 and MAP H2. MAP H2 is the squid analog of cytoplasmic dynein. MAP H1 is a vesicle surface protein that can also bind to microtubules. MAP H1 binds ATP, and antibodies to MAP H1 block vesicle transport in extruded squid axoplasm. The MAP H1 polypeptide has a molecular weight greater than 400,000; approximately 25% of the polypeptide has thus far been cloned and its amino acid sequence thereby deduced. The experiments proposed in this renewal project are designed to expand our knowledge of MAP H1 and its role in microtubule based motility. The cloning and sequencing of the MAP H1 polypeptide will be completed. Functional domains of the molecule will be expressed in bacterial cells, purified, and their characteristics analyzed with respect to their ability to interact with microtubules, vesicle surface proteins, and other elements of the cytoskeleton of nerve cells. In transfection experiments with tissue culture cells, the effect of over expression of MAP H1 or of under expression (using antisense constructs) of MAP H1 will be assessed via motility assays and immunofluorescence microscopy. Finally, immunoprecipitation and specific radiolabelling experiments will be performed to identify those polypeptides of axoplasm and/or of the vesicle surface with which MAP H1 is capable of interacting. %%% The eukaryotic cell is a highly organized structure, and this high degree of spatial organization is critical to cellular function. In the special case of nerve cells, whose function is intercellular communication, this communication occurs in part by the release of secretory materials from the tip of the axon, a long slen der cellular process, in the vicinity of a neighboring cell. The secretory materials released from the axonal tip are manufactured in the main body of the nerve cell, at the other end of the axonal process. The mechanism whereby these materials are transported down the length of the axon is thus critical to proper nerve function. This mechanism, which involves the movement of membrane-enclosed vesicles containing the secretory materials along axonal microtubules, is not really unique to nerve tissue, since microtubule-mediated motility is a nearly ubiquitous mechanism for directed intracellular particle movements. However, the axon, particularly the squid giant axon, is an especially useful model for studying microtubule mediated transport. Recent advances in this field have led to the discovery of motor proteins which are involved in this transport. However, the motors alone are clearly not the whole story. The results of this project will lead to a more complete understanding of the mechanism of vesicle transport in neurons, and will provide important information about the components on the surfaces of the transportable vesicles that allow the vesicles to specifically interact with the microtubule based transport apparatus. This knowledge will not only be of significance to understanding the biology of the system, but is potentially important for downstream exploitation of microtubule-mediated transport phenomena in non-biological applications, such as advanced materials and nanofabrication. ***